PLDI 2013 Travel Support

This award will support student travel to the 2013 ACM SIGPLAN Symposium on Programming Language Design and Implementation (PLDI '13), which is being held in Seattle, Washington. PLDI is a top conference in the fields of programming languages and compilers. The funds will help support U.S. students, focusing on Ph.D. students at an advanced stage in their program and students who would otherwise not be able to attend PLDI. Supporting student travel to attend professional conferences and workshops is a very important mission of the NSF. Broader impacts include training the next generation of researchers in this important research area.